Relativistic Heavy Ion Collision Studies with the RHIC STAR Experiment

The main physics goals of this project are two-fold: 1) to create in the
laboratory a new state of matter called "Quark Matter" by heating/
compressing normal nuclear matter to a sufficiently high temperature/
density, and, equally important, 2) to uniquely determine whether such a
transformation to Quark Matter has actually taken place. Quark Matter is
composed of "free" quarks and gluons, the fundamental particles which
are bound into protons and neutrons which make up normal nuclear matter. It
is predicted that the Universe was entirely in the Quark Matter state
several millionths of a second after the Big Bang. The method which we will use
to make Quark Matter will be to collide beams of heavy nuclei (e.g. lead
on lead and gold on gold) moving at speeds near the speed of light.
These beams will be generated by new state-of-the-art particle accelerators
located at Brookhaven National Laboratory on Long Island and at the CERN
laboratory in Geneva. To determine whether Quark Matter has actually
been created in these high energy heavy ion collisions, large particle
detectors will be present to detect the secondary particles which are produced
(mostly pi and K mesons and a range of more exotic particles). Theories
predict that unique signatures for Quark Matter formation can be
extracted from information obtained from these secondary particles. One of the
main roles of the Ohio State University group in these experiments is to lead
the analysis of the data from a new type of particle detector which OSU
has taken part in developing called a "Silicon Drift Detector" and,
hopefully, to extract unique Quark Matter signatures.5